Research in Elementary Particle Theory (Physics)

Research in a variety of phenomenological and theoretical topics in elementary particle physics will be carried out. Two projects involving heavy quarkonium decays are planned. First, motivated by the large QCD one-loop corrections to the decay into a Higgs boson, it is planned to calculate the one-loop corrections due to Higgs bosons to this process in two-Higgs doublet models (as required, for example, in all supersymmetric theories). Secondly, it is proposed that heavy quarkonium decays into Z and ZH final states be reexamined for all S- and P-states. It is also planned that the study of W and Z pair- production in high-energy e e collisions in the context of a strongly-interacting electroweak sector be udertaken. Limits on the masses and couplings of leptoquark bosons derivable from ultrahigh-energy cosmic ray neutrino interactions will be investigated as will the phenomenology of superstring-motivated models derived from E . On the more theoretical side, building on previous studies (of this author and collaborators), continued work on the effects of a finite-temperature heat bath on the stability of spacetime is planned. Finally, two projects involving properties of theories with unbroken supersymmetry are also proposed. One is the investigation of sum rules in supersymmetric quantum mechanics and their relation to special function theory in mathematics. The other will involve one-loop calculations of various cross-sections to test for the existence of amplitude zeros beyond tree level in supersymmetric theories. This work, by a very highly-regarded young theoretical physicist, will add to our understanding of the physics of certain elementary particles that, while so-far undiscovered, are widely believed to exist, and are central to our picture of the basic forces of nature.